Multidisciplinary Simulations Using the Loci Framework

This is a collaborative research project between the Engineering Research Center (ERC) for Computational Field Simulations at the Mississippi State Univesity and NASA Marshall Space Flight Center and stennis space Center. The objective of the research is to address the issues related to improving the quakity of numerical simualtions of rocket engines, both in operational and testing environments. The critical science barriers will be addressed in this grant. NASA will provide funds to develop the test-bed systems that will validate the computational and simulation results in the Ejector-Mode Rocket Based Combined Cycle (RBCC) engine performance and survivability studies.